Linguistic Errors Database

The aim of this project is to continue the development of the computerized database of linguistic errors (slips of the tongue) initiated in 1992. The interest in speech errors has grown enormously among linguists, psychologists, and neuropsychologists in their attempts to understand how linguistic knowledge is represented in the mind, how it is accessed in behavior, and the neurological basis for such representation and processing. Many individual collections are now in existence consisting of over 40,000 errors. Except for published examples, there has been no way of sharing these data; this project hopes to correct this problem by developing a database with the UCLA Speech Error Corpus and the corpora collected by Merrill Garrett (University of Arizona), Stefanie Shattuck-Hufnagle (MIT) and the late W.H.N. Hotopf (of the London School of Economics). The program which has been written and the errors entered to date have already been made available to a number of other investigators. When finally established, both the software and the database (on CD-ROM or via ftp site) will be widely distributed among all researchers interested in working with such data . The program will be further updated to permit the inclusion of crosslinguistic speech errors; entering of Spanish, Italian, French, Thai, and Japanese errors has already begun. In addition, the special kinds of coding needed to build a database of errors and disordered speech of aphasic individuals following focal brain damage will be explored.